REU: Research Experiences for Undergraduates in Biological Sciences at Louisiana State University

This is a Research Experience for Undergraduates project. It will provide research experiences for ten students at Lousiana State University. Students will participate in projects involving biochemistry, microbiology, physiology and botany.